Shipboard Scientific Support Equipment Caley Upgrade

ABSTRACT

09 July 2012
Proposal Number: 1219288
Institution: University of Delaware
PI: W. Byam
Co-PI: [None]

This proposal requests one Shipboard Scientific Support Equipment item for the University of Delaware for the R/V HUGH R. SHARP; namely control system up-grades for the existing CTD Handling System. This award represents Phase I of a multi-year project award that will eventually support similar system up-grades on the University of Hawaii's KILO MOANA. This project will greatly enhance safety and science support capabilities on both vessels.

Broader Impact and Intellectual Merit: The PI addressed the Broader Impact and Intellectual Merit of the proposed equipment specifically for the R/V HUGH R. SHARP. The research projects supported have been individually peer-reviewed for scientific merit. During operations, these vessels routinely expose graduate and undergraduate students to seagoing oceanography. Specifically, College of Marine and Earth Studies participates in a large number of outreach programs including open house events (Coast Day), participation the MATE program, and educational cruises. The College also hosts the UNOLS East Coast Van Pool. The R/V HUGH R. SHARP is scheduled to support over 90 NSF-funded days in CY 2012.